CAREER: Deciphering Antarctic Climate Variability during the Temperate/Polar Transition and Improving Climate Change Literacy in Louisiana through a Companion Outreach Program

Intellectual Merit:
The PI proposes a high-resolution paleoenvironmental study of pollen, spore, fresh-water algae, and dinoflagellate cyst assemblages to investigate the palynological record of sudden warming events in the Antarctic as recorded by the ANDRILL SMS drill core and terrestrial sections. These data will be used to derive causal mechanisms for these rapid climate events. Terrestrial samples will be obtained at various altitudes in the Dry Valleys region. The pollen and spores will provide data on atmospheric conditions, while the algae will provide data on sea-surface conditions. These data will help identify the triggers for sudden climatic shifts. If they are caused by changes in oceanic currents, a signal will be visible in the dinocyst assemblages first as currents influence their distribution. Conversely, if these shifts are triggered by atmospheric factors, then the shifts will first affect plants and be visible in the pollen record.

Broader impacts:
The PI proposes a suite of activities to bring field-based climate change research to a broader audience. The PI will advise a diverse group of students and educators. The palynological data collected as part of this research will be utilized, in part, to develop new lectures on Antarctic palynology and these new lectures will be made available via a collaboration with the LSU HHMI program. In addition, the PI will direct three Louisiana middle-school teachers as they pursue a Masters of Natural Science for science educators. These teachers will help the PI develop a professional development program for science teachers. Community-based activities will be organized to raise science awareness and alert students and the public of opportunities in science.